Research in Mathematics Education: An ICMI Conference

9453874 Fey The International Commission on Mathematics Instruction (ICMI) will hold an invitational international working conference in College Park, MD from 8-11 May 1994. The purpose of the conference is to allow prominent researchers in mathematics curricula, teaching, and learning. Results will be disseminated to the broader research community in the United States and around the world and to concerned mathematicians, teachers, teacher educators, and curriculum developers. The NSF grant will be used to support travel and subsistence of participants, to enable the conference to engage the best researchers from around the world. ***